Oceanographic Instrumentation

Louisiana Universities Marine Consortium (LUMCON) requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V PELICAN, a 105 foot vessel, which is owned and operated by the University. The PI requests funding to purchase a Seacat Profiler and autoanalyzer upgrades. The instrumentation requested will be used aboard the R/V PELICAN in support of 59 days of NSF-funded scientific research in 1993.